Concepts of Chemistry: A Hands-On Exhibition

The California Museum of Science and Industry will create a 3,000 square foot permanent exhibition of hands-on participatory exhibits on chemistry and chemical phenomena that will allow visitors to manipulate the variables of chemical systems. Forty exhibit units will be organized in clusters in that represent the basic concepts of properties of atoms and molecules, molecular structure and chemical reactions, stability of molecules and rates of reactions, forces between atoms and molecules and energy of atoms and molecules. The exhibition will use state-of-the-art technology to present chemical experiments previously left to the lab bench or the demonstration table. Interactive computers and videodiscs will be used where danger or complexity prevents the visitor from using "the real thing." Exhibit content will be proved in prototype form and tested on museum staff, visitors, and school groups prior to final design and construction. NSF support will be used in the design and prototype phases, and an "exhibit cookbook" of exhibit technologies for use by other museums will be created. The project has already attracted more than $175,000 of matching funds towards a total of $800,000 in non-NSF matching funds to support its $1,100,000 budget.